A Regional Model of the Arctic Land-Atmosphere System

OPP-9318533 Walsh The goal of this project is the implementation of a regional model of the arctic atmosphere-land system for use in the Flux Study of the ARCSS LAII (Land-Atmosphere-Ice Interactions) program. Specific objectives are (1) to simulate the land-atmosphere interactions that control the hydrology and the trace gas fluxes over the northern Alaskan region, and (2) to project changes in the climate and surface forcing of this region. The atmospheric simulations utilize the NCAR/Penn State mesocale analyses provide the lateral forcing. The surface exchanges will draw upon a coupling to soil-vegetation and hydrological models under development in other Flux Study projects. Mesoscale topography, vegetation and soil data, also provided by other Flux Study projects, will be incorporated into the model. The regional model provides framework for the scaling-up of the Flux Study's plot, tower and aircraft measurements of the surface fluxes. Finally, output from a global circulation model will be used to drive the regional model in a series of greenhouse-induced climate change experiments, thereby providing high-resolution scenarios of regional climate change for assessments of future trace gas fluxes. ***